REG: Workstation Laboratory

High speed computer workstations will be purchased and dedicated to supporting research in mechanics and materials. The Workstations will be used to support several research projects, including in particular: o Mechanical modeling of polymer behavior and simulation of polymer processing. o Finite element study of mechanical forces on the growth plate in bones. o Micromechanics of failure in random microstructures. o Constitutive modeling of creep in sea ice. o Finite dynamic elements.